International Advanced Robotics Programme (IARP) Workshop on Autonomous Underwater Vehicles for Shallow Waters and Coastal Environments, February 17-19, 1998, Lafayette, LA

9712565 Valavanis The theme and central objective of the Workshop is Autonomous Underwater Vehicles for Shallow Water and Coastal Environments. Specific applications will target shallow water environments related to wetlands and shallow water fisheries monitoring, coastal studies, monitoring of environmental pollution due to industrial wastes, offshore oilfield platform and pipeline inspection and maintenance. An oil spill in wetlands is quite different from an ocean or beach oil spill. The swamps around river banks and bayous are not easily accessible to any containment and remediation process. Further, the sinking oil in water, among weeds, and in sediment materials make it more difficult to detect, identify and confine. In addition to the already mentioned difficulties, it is not advisable to use humans for such functions due to the hazardous nature of the tasks. Thus, a relatively inexpensive AUV equipped with the proper sensors and controls may provide a viable alternative solution to the problem. The anticipated outcome of the meeting will be: a clear understanding of the problem area (shallow water environments), derivation of operational and mission constraints, and requirements and a suggested AUV architecture to build such a vehicle. Proceedings will be produced and distributed. ***